Ice Cap Magnetometer Data-Recording System

This proposal is to provide data-recording equipment for a fourth magnetometer to be deployed as part of the MAGIC magnetometer array as well as to supply spare parts for the continued service and operations of the other systems in the array. Such equipment is critical to the science program to be funded under the complementary proposed program from the University of Michigan on "Continuing Operation of a Magnetometer Array on the Greenland Ice Cap (MAGIC) to Investigate Propagating Ionospheric Current Systems." Since SRI provided the systems for the present stations, it is most efficient that they provide equipment for the final station to be deployed during the 1992 summer field season. The apparatus includes the following: (1) very low power microcomputer with interface to handle the analogue magnetometer signals, (2) large, low power consumption static random access memory, (3) clock providing 1 ms timing precision from Omega system VLF broadcast signals, and (4) power supply and conversion equipment. The system is packaged in a heavily insulated container to provide environmental protection for the computer system which self-heats the enclosure. Data is stored in the static RAM for later interrogation by the experimentor with a memoary sufficient to store up to one year of 15-s averaged data.